Investment, Technology Adoption, and Environmental Policy

The purpose of this research is to extend the investigators recent work on irreversible investment decisions in a number of interesting and important directions. One of the directions is the impact of the uncertainty of future environmental regulation on business investment. A related topic that will also be investigated is the problem of environmental irreversibilities and their implications for the design of policies to deal with global warming, ozone depletion, and related long-term problems. Another topic is aimed at deriving investment rules for projects in which the ultimate cost of completion is unknown, but is resolved as construction proceeds as in the case of electric power plants. Another study will focus on the measurement of economic depreciation and obsolescence, and the decision to replace old capital with new. At issue is how stochastic wear and tear, and uncertainty over the future productivity of capital can affect the replacement decision, and how they should be accounted for when calculating depreciation. The final project involves the study of investment in R&D and the adoption of new technologies. In particular, the trade-offs between adopting a current technology, waiting for new technology to arrive, or conducting R&D that can lead to a new technology will be examined.